STTR Phase I: Blockchain ontology and services for monitoring and performing analytics on smart contracts

The broader impact/commercial potential of this STTR project addresses a paradox faced by ‘open web’ developers, users, and regulators: the use of centralized platform-creator hosted web portals to interact with an evolving decentralized finance (DeFi) application ecosystem. The proposed work will instrument a new open web paradigm that will improve user accessibility and ability to compose and perform data analysis on smart contracts. The approach will enable improvement of web-service reliability and security while weeding out bad actors. Improving the accessibility and analysis of smart contracts is anticipated to help unlock further value and solutions across a range of applications and new business opportunities that can benefit from dynamic contracting.

This STTR Phase I project proposes to build a blockchain-adjacent metadata model that enhances the utility and security of smart contracts for users and developers. The project will undertake the practical challenge of reverse-engineering smart contracts to outline a metadata model which will enhance discovery and security of services, creating a scaffold for composable apps. The approach will organize blockchain abstractions through code similarity analysis and program de-obfuscation by reverse engineering, instrument compile-time creation and publish metadata models by developers, and demonstrate how this data can be used to build a composable app user experience. The project will deploy privacy-preserving targeted advertising frameworks using deterministic services alongside the data from the metadata model.